Tsunami Survey for the February 21, 1996 Peruvian Earthquake

9634142 Yeh This action is to support a small reconnaissance team to learn from the February 21, 1996 Peru earthquake and tsunami, in order to gather and study perishable inundation data. On February 21, 1996, a large earthquake struck under the sea off the northern coastal region of Peru, triggering a tsunami which swept into the port of Chimbote with 3 to 5 meter waves, destroying fish processing plants and more than 50 houses, and which was recorded by tide gages at Easter Island (60 cm) and Hawaii (25 cm). The information gathered to date point to it being a "tsunami earthquake" -- a term resulting from the 1994 Nicaragua earthquake to indicate an earthquake which is unusually efficient in producing tsunamis. A thorough investigation of "tsunami earthquakes" and their effects is critical in terms of hazard mitigation, and valuable in light of recent theoretical developments in fault rupture mechanisms. The reconnaissance team will gather essential tsunami-effect information including runup, flow patterns and velocities, tide-gage records, structural damage, scouring effects, sediment transport, intensity of ground shaking, the effect on estuaries and nearby lakes, and any secondary effects caused by this earthquake and its associated tsunami. The team will attempt to follow the recommendations for survey methodology and procedures established at the 1995 Tsunami Measurement Workshop in Estes Park, Colorado, as well as the 1995 Tsunami modelling Workshop in Friday Harbor, Washington. Because international tsunami researchers are currently involved in a reconnaissance of another large tsunamigenic earthquake (Mw 8.2) that occurred along the northern coast of Irian Jaya, Indonesia, on February 17, 1996, this Peru tsunami reconnaissance team will be relatively small. However, the findings of this team will be announced widely through the Tsunami Bulletin Board -- an Internet mailing list initiated and maintained by the NOAA Pacific Marine and Environmen tal Laboratory (PMEL) in Seattle. Immediately after the survey, a brief report will be disseminated via the Tsunami Bulletin Board, with the final results being published, and also posted on the University of Washington World Wide Web tsunami home page. All the gathered data will be available upon request. ***